SGER: Three-Dimensional Generalized Parallel Delaunay Mesh Generation for the Numerical Solution of Partial Differential Equations

The goal of this proposal is to study the development of new and
efficient class of parallel guaranteed quality and three-dimensional
(3D) mesh generation methods for real-time finite element computations
on current and emerging parallel architectures. Specifically, we
will: (1) generalize the point insertion theory for 3D guaranteed
quality Delaunay mesh generation, (2) develop a parallel theoretical
framework that can deploy this method with limited additional effort
from sequential to multicore/multithreaded processors and eventually
on clusters of multiprocessor nodes with multicore/multithreaded
processors, (3) perform complexity analysis using the practical LogP
model and (4) finally implement the first ever 3D parallel guaranteed
quality mesh generation method using existing state-of-the-art fully
functional sequential software and the parallel framework we will
develop.

The intellectual merit of this proposal is to derive an entire 3D
region inside the circumscribed sphere, for the selection of Steiner
point insertion. The novelty of the approach is that we have the
flexibility to use many new positions for point insertion of Delaunay
methods rather than one or two choices were used in the past; the
additional choices create more opportunities to improve size
optimality along with other application-centric criteria (multiple
tissues/materials). In addition, for the first time ever, we can
achieve code re-use for 3D geometries. The project will have broader
impact on several scientific computing and engineering communities
like mesh generation and bioengineering.